Control of Neuronal Growth & Synaptogenesis

During development, many brain regions establish 'maps' in which inputs are organized so that correlated activity converges on common target nerve cells, the neurons. Activity coming from the eye is crucial in regulating the formation of a spatial map of the external visual world. The incoming nerve fibers, called afferent axons, make functional contacts called synapses on the receiving parts, called dendrites, of target neurons. Physiological activity regulates how the axon terminals and the dendrites develop their detailed morphology, and regulates the strength of the synaptic connections; without vision, these connections do not form properly. This project uses pharmacological manipulations with a novel microscopic technology of time-lapse confocal imaging of cellular structures as they develop in the brain of tadpoles. Tests analyze how synaptic strength affects synaptic structure, and how the neurotransmitter molecule called GABA and a molecular receptor called the NMDA receptor regulate development of structure and function.
Results will provide valuable new information on regulatory mechanisms controlling development at the molecular level in the living brain. This project also provides substantial training for students from the high school to postdoctoral level.